AF: Small: An Integrated Approach to Characterizing Conformational Changes of Large Proteins

One of the major hurdles in the understanding of physiological processes and the design of new pharmaceutical drugs has been the understanding of the three-dimensional structure and flexibility of molecules, which hold key insight into their function and interactions. In many biological pathways conformational flexibility is known to play an essential role in driving functional mechanisms and has been the topic of both computational and experimental investigations. Modern experimental methods such as Hydrogen/Deuterium Exchange coupled with Mass Spectroscopy (HDX-MS) can probe the flexibility of large proteins, but the findings are mapped on the available (static) crystal structures, thereby losing a considerable part of the dynamic information. This proposal will investigate the extent to which computational methods can help discover and visualize conformational changes of large proteins that are in agreement with experiment. Because of the specific proteins selected for study in the context of this proposal, the proposed work has a great societal impact: it helps advance the understanding of processes that are involved in a variety of immune, inflammatory, neurodegenerative, ischemic, and age-related diseases. This proposal will train undergraduate, graduate, and postdoctoral students at Rice and the University of Pennsylvania on interdisciplinary topics. It will also provide training opportunities to women students. All work will be disseminated not only through technical presentations at national meetings, publications in peer reviewed journals and book chapters, but also through visits and talks with researchers in academia and the biotechnology industry, as well as with open source development and distribution of the algorithms developed for widespread use.

A central part of this proposal concerns the development of a computational framework that samples the conformational space of proteins. It relies on a new representation of the degrees of freedom of proteins and protein complexes and on the definition of sampling primitives at various resolutions. The framework draws from geometry-inspired sampling techniques that efficiently explore large search spaces while keeping track of the extent that the search space is covered. In parallel, HDX-MS experiments will be carried out and used as probes for conformational variability. The experimental results will be correlated with the results of the computational framework to select the conformations that most closely match experiments. A distinguishing feature of this work is the connection with experiment and the ways in which each can feed the other. This proposal lies at the intersection of algorithms, computational geometry, dimensionality reduction, data mining, and visualization methods and connects with modern experimental methods which are actively under development and hold great promise for the understanding of protein structure and function.